Mathematical Sciences: Differential Equations and Continuum Mechanics

This project is concerned with modeling (derivation and presentation of equations of motion) and analysis (perturbation methods, bifurcation techniques, numerical methods, etc.) devised for and applied to problems in nonlinear, non-Fickian diffusion which have recently arisen in a variety of scientific and technological fields. Central problems emerging in these new technologies are types of diffusive motion quite unlike anything predicted by classical diffusion theory. They involve nonlinear fixed and free boundary value problems, phase transitions, sharp (shock-like) propagating fronts, and discontinuous steady states. Progress in materials science has spawned an extraordinary wealth of new exciting scientific and technological problems. For example, polymers and composites are replacing traditional materials in many older scientific, engineering and commercial applications, and wholly new fields with a dazzling array of new applications are emerging because of the existence of new synthetic polymers and composites. This project deals with modeling and analysis to develop valid theories for the behavior of new materials and accurate control of their properties.